Electron Studies

Precision measurements of the properties of elementary particles play an important role in testing the validity of quantum electrodynamics (QED). Professor Gabrielse is measuring precisely the natural frequencies of a single electron confined in a specially constructed charged-particle trap. He will measure the electron magnetic moment, and exploit the one-electron cyclotron oscillator to study hysteresis adn bistability in this particularly simple system exhibiting nonlinearity.